SHF: Small: Design and Inference of Choreography Types to Reduce Concurrency Programming Errors

With the growth of the web, cloud computing, sensor networks and
multicore programming, concurrency has become critical to software
applications in the real world. Because the Actor model of concurrent
computation provides scalable concurrency, commercial software is
often written using the Actor model. Many concurrency related errors
such as unprocessable messages, deadlocks, and livelocks result from a
mismatch of component actors in a system. The research develops
choreography types as a method to understand concurrency structures
and detect concurrency related bugs. The intuition behind the
research is that combining symbolic execution with information from
concrete traces obtained during unit testing can provide a way to
infer and approximate choreography types.

The research would make concurrent and distributed programming
safer--increasing trust in applications such as cloud computing on
which a large part of the US economy is dependent today. Much as data
types help programmers think about the interfaces of components in a
sequential program, the research would provide ways in which
programmers can think about the structure of parallel programs in
terms of choreographing actors with evolving type structure. The
educational impact of the research is to facilitate teaching scalable
parallel programming, creating tools that expose and facilitate the
understanding of the structure of concurrent programs.